Participant Support for Liblice Conferences on Statistical Mechanics of Liquids

9321100 Gubbins Partial support is sought for invited speakers from the United States to attend the Fourth Liblice Conference on the Statistical Mechanics of Liquids, to be held at Lake Milovy, Czech Republic on June 6-10, 1994. The Czech Academy of Sciences is organizing and hosting the conference, and will cover all local costs within the Czech Republic. Unique features of the conference will include: (a) coverage of the most recent molecular methods and results for complex liquids and interfaces, including ionic and associated liquids, colloids and micellar solutions, self-assembly, aqueous solutions, surfactants and adsorbents, etc., (b) latest developments in advanced molecular simulation techniques, including parallel and distributed systems, (c) coverage of both applied and basic aspects, and (d) an opportunity for U.S. researchers to become familiar with leading research in this area by groups from East and West Europe, Japan and Australia. The invited speakers will include many of the international experts from these countries. Previous conferences were held in 1983, 1986, and 1990, and received widespread acclaim from U.S. attendees. ***